Gromov-Witten Invariants and Isoparametric submanifolds

Abstract

Award: DMS-0071372
Principal Investigator: Xiaobo Liu

This research program addresses problems in two areas. The
Virasoro conjecture in symplectic geometry asserts that the
generating function of the Gromov-Witten invariants for a compact
symplectic manifold must be annihilated by a sequence of
differential operators in the Virasoro algebra. The principal
investigator will study whether the genus-one Virasoro conjecture
and perhaps more general constraints hold for all projective
varieties. It is even possible that the generating function of
genus-one primary Gromov-Witten invariants can be computed
explicitly from the genus-zero invariants, although this is more
than the Virasoro conjecture implies. The second area to be
addressed is submanifold geometry, especially the properties of
isoparametric submanifolds, including infinite dimensional
submanifolds. We know some good constructions of isoparametric
submanifolds, but important aspects of the classification theory
are in early stages of development.

Geometric descriptions of classical or quantum mechanical systems
are based in symplectic geometry, which takes as its basic
measurement the area of two-dimensional surfaces. The
Gromov-Witten invariants of a symplectic manifold can be
described as a family of number that count the number of surfaces
of a nice sort that satisfy certain constraints, such as
intersecting specified subsets of the manifold. Enumerative
invariants of this kind are an ancient concern in algebraic
geometry, where we count the number of solutions to a system of
equations, and the subject was recently found to be connected to
high energy physical theory, where the partition functions of
certain quantum systems on a manifold have been found to be
related to generating functions that collect families of
Gromov-Witten invariants into a manageable form. The Virasoro
conjecture proposed by a group of physicists and mathematicians
asserts that these generating functions satisfy a family of
constraints that simplify computations and connect the
Gromov-Witten invariants to the mathematics of completely
different problems. A different kind of geometry arises in the
study of submanifolds as curved objects, where we use several
measurements of bending to capture the intuitive sense that a
sphere in three-space is more curved if its radius is small than
if its radius is large. An isoparametric submanifold is an
imbedded object which has particularly simple curvature
properties with respect to the larger space, and the character of
this specialty is driven by the fact that this local condition
frequently imposes strong symmetry properties the whole
submanifold.